NeTS:ProWiN: Dynamic Intelligent Management of Spectrum for Ubiquitous Mobile Networks (DIMSUMnet)

NeTS-ProWIN: Dynamic Intelligent Management of Spectrum for Ubiquitous Mobile Networks (DIMSUMnet)

Paul Kolodzy, Stevens Institute of Technology

Award 0435348

Abstract

Current spectrum allocation rules set by Federal Communications Commission (FCC) have lead to an artificial spectrum scarcity, even though large swaths of spectrum remain underutilized. The new paradigm of Dynamic Spectrum Access shows promise of alleviating this and ushering in new forms of networks. However, most current research on this topic has focused on highly opportunistic, uncoordinated spectrum access for peer-to-peer ad-hoc communications.

This research takes a pragmatic viewpoint that coordinated dynamic spectrum access techniques to allocate spectrum on an on-demand basis can be quite beneficial in cellular and Fixed Wireless Access (FWA) networks. This effort addresses the following research problems in this context: (1) Develop a comprehensive understanding of spatio-temporal spectrum usage in existing cellular networks using extensive spectrum measurements in the urban and rural settings. (2) Develop models for spectral utilization and quantify improvements in spectral access efficiency and utilization. (3) Research spatial data representation structures, scalable spectrum servers, and spectrum allocation sharing/trading policies that are required to support efficient dynamic spectrum access.

This project will create a body of RF spectral measurements to determine the locality of spectrum utilization (in time and space). Additionally, the data analysis will lead to new models of spatial-temporal-spectral correlation for urban and suburban environments. Finally, characterization of RF dynamics will be characterized in order to drive choice of spectrum management control parameters leading to optimal application of dynamic spectrum allocation. In summary, this research will result in fundamental contributions to the science of coordinated spectrum access.